Seeing is Believing: An Investigative Microscopy Project for Introductory Biology Students

Seeing is Believing: An Investigative Microscopy Project for Introductory Biology Students This is an investigative process oriented microscopy project in an Introductory Biology Course for majors. This project facilitates learning basic microscopy and also teaches observation, critical thinking, and research skills. Students use both light and scanning electron microscopes as investigative tools. The photomicrography equipment enables students to record data about chosen specimens and subsequently analyze structure (i.e., measuring size of various cellular features, etc.). The scanning electron microscopy (SEM) provides greater levels of resolution, and the opportunity to do comparative structural analysis in addition to its function of recording data. Implementation of this project will improve the quality of the laboratory experience in an Introductory Biology Course. It will allow beginning students hands-on access to modern instrumentation, improve research skills, and provide opportunities for a process oriented learning experience rather than the traditional cookbook approach.